International Biometric Conference - San Francisco

DMS-0070176-Lynne Billard

The International Biometrics Conference is planned for July 2-7, 2000, at
San Francisco. The meeting will focus on the active areas of research in
biostatistics. Areas of emphasis are "advancement of biological science
through the development of quantitative theories and the application,
development, and dissemination of effective mathematical and statistical
techniques". The conference participants are concerned with
cross-disciplinary and interdisciplinary interface of the theoretical and
application oriented real-world problems. In addition to the invited talks,
ample time will be given for small group discussions in which junior
participants will meet with senior mentors and other participants.

The NSF monies requested are to support about fifteen U.S.-based participants
and five non-U.S.-based researchers with emphasis on young researchers
and traditionally underrepresented groups. Support will be limited to
individuals at academic institutions and non-profit organizations.